Acquisition of a Departmental Rapid Scanning Stopped-Flow Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at the University of Wyoming in the purchase of a Rapid Scanning Stopped-Flow spectrometer. This new instrumentation will enhance the research in a number of areas including the following: Mechanisms for the Decomposition of Peroxynitrite; Activation of Carbonyls by Lewis Acids; The Reactions of Di- and Trisulfides with Dimethyldioxirane; Metal-Alkyl Protonolysis Kinetics Studies; and Stopped-Flow Studies of Luminescence Sensors Based on Complexes Containing MLCT Excited States. A Stopped-Flow spectrometer is used to follow the kinetics of fast reactions in which the reagents cannot be previously mixed. The Stopped-Flow method uses a small solution volume in a static reactor connected to a rapid-mixing device. The mixed solutions passed into the reactor is stopped when a steady state is reached, and the reactant concentration is monitored spectrophometrically. The Stopped-Flow method is used in fast reactions, such as enzyme- catalyzed reactions.